QLCI: Quantum Systems through Entangled Science and Engineering (Q-SENSE)

NSF Q-SEnSE (Quantum Systems through Entangled Science and Engineering), led by JILA and University of Colorado Boulder in collaboration with universities and national laboratories across the United States, seeks to advance the emerging field of quantum sensing and realize impactful quantum speedup for science and technology. Building on accomplishments from its first phase, the Institute will develop new quantum technologies capable of measuring physical phenomena with unprecedented precision, enabling advances in both fundamental science and practical applications. These efforts will improve capabilities in areas such as position, navigation, and timing, medical diagnostics, environmental monitoring, while strengthening U.S. leadership in quantum science and engineering. NSF Q-SEnSE will also educate and train the next generation of quantum scientists and engineers through collaborative research, partnerships with industry, and expanded access to quantum education and workforce development opportunities.

NSF Q-SEnSE Phase II is organized around interconnected efforts in fundamental physics, engineering and technology development, and transferable applications, supported by an integrated education and workforce development program. They form the organizing principles for six focus areas: Quantum simulators for enhanced sensing, solid state systems as a new quantum sensing platform, novel molecular sensors for fundamental and applied physics, optical clocks and networks, matter wave interferometers, and frequency comb-based extreme sensing for medical and environmental uses. Fundamental Physics will recursively expand what is knowable about how quantum systems can be used to develop genuine quantum advantage for precision sensing and to derive motivation from the potential for discovery of new physics beyond the current framework. Engineering and Technology Development will adopt, develop, and integrate those advances into first-generation laboratory systems, including leading quantum platforms of ion trapping, atomic lattice and tweezer arrays, quantum dots and superconducting circuits, atom optics for interferometry, integrated photonics, and frequency combs. Transferable Impacts will position major research advances for adaptation and broader use by the scientific community and industry. Throughout the Institute we weave a network of quantum systems in which theory plays foundational and applied roles, integrated photonics connect and integrate quantum components, quantum entanglement is robustly engineered and optimized for pushing new envelopes at measurement frontiers, and system integration is emphasized to reach grand challenge goals. In parallel with research activities, Q-SEnSE’s Education and Workforce Development program will advance hands-on training of students based on collaboration with industry partners and will provide opportunities to college students for quantum-related resources and skills necessary for career development. Our partner universities will establish these intertwined research education activities at geographically distributed hubs. The vector sum of our research projects and education/workforce efforts will develop and deliver a National Resource in Quantum Science and Engineering.